Research Experiences for Undergraduates in Bio-Organic Chemistry at the University of California, Los Angeles

9322079 Merlic UCLA Dr. Craig A. Merlic and other members of the Chemistry Department of UCLA are being supported in a new Research Experiences for Undergraduates site in Chemistry. For the period 1994-6, nine undergraduates will spend ten weeks each summer actively engaged in a variety of research projects. A unique feature of the program will be the focus on bioorganic chemistry.